Analysis of Cavitation in Solids

The focus of the research supported by this award is the
mathematical analysis of certain significant material failures in
solids. The goal of this endeavor is the qualitative prediction of
the formation and growth of voids. Toward this end the principal
investigator will continue his studies of the relevant nonlinear
partial differential equations, which constitute the mathematical
model, in order to determine conditions under which these problems
have singular solutions. The underlying equations are those that
arise in elasticity and viscoelasticity and the desired
singularities are point discontinuities. Problems that will be
considered include: the existence of singular solutions to
quasilinear elliptic systems; the existence of, and admissibility
criteria for, singular solutions to hyperbolic systems; the
existence of singular solutions to certain parabolic systems; the
existence of minimizers with singularities for problems in the
calculus of variations; regularity, fine properties, and the
asymptotic behavior of singular minimizers; the optimal location
for an isolated singularity; and, the determination of whether
known singular solutions to a quasilinear elliptic system are
indeed minimizers of the corresponding problem in the calculus of
variations.

The research area of this grant is the mathematical analysis of
equations that arise in Materials Science. The most common way to
determine when a material will fail under the influence of external
forces is to subject a piece of the actual material to tensile
loads until failure occurs, i.e., "pull on it until it breaks".
This is fine if one is interested only in the gross properties of
the material. However, if one wants to understand the reasons for
material failure then one must have recourse to mathematical models
of the material. Experiments on certain rubbery polymers, called
elastomers, have shown that when one pulls on an elastomer small
holes appear in the material. These holes then grow in size and
combine to form cracks. A similar phenomenon has been observed in
optical fibers. Catastrophic failure, due to a series of holes
that cascade down the core of the fiber, can occur when excessive
power is applied. These holes seriously degrade the ability of the
fiber to transmit information. In this grant, the principal
investigator will uncover the mechanisms that cause the creation
and growth of holes in polymers and glasses by examining systems of
partial differential equations from the theory of elasticity and
viscoelasticity.